DLI-Phase 2: A Patient Care Digital Library: Personalized Retrieval Summarization of Multimedia Information

Abstract

IIS-9817434
McKeown, Kathleen
Columbia University
$953,188 - 12 mos.

DLI-Phase 2: A Patient Care Digital Library

This is the first year funding of a five year Cooperative Agreement award. Healthcare consumers and providers both need quick and easy access to a wide range of online resources. The goal of this project is to provide personalized access to a distributed patient care digital library through the development of a system, PERSIVAL (Personalized Retrieval and Summarization of Image, Video And Language resources). PERSIVAL will tailor search, presentation, and summarization of online medical literature and consumer health information to the end user, whether patient or healthcare provider. PERSIVAL will utilize the secure online patient records available at Columbia Presbyterian Medical Center (CPMC) as a sophisticated, pre-existing user model that can aid in predicting user's information needs and interests. Key features of the proposed work include personalized access to distributed, multimedia resources available both locally and over the Internet, fusion of repetitive information and identification of conflicting information from multiple relevant sources, and presentation of information in concise multimedia summaries that cross-link images, video, and text. When the latest medical information is provided at the point of patient care, it can help practicing clinicians to avoid missed diagnoses and minimize impending complications. When expressed in understandable terms, it can empower patients to take charge of their healthcare.